Wages, Productivity, and Worker Characteristics

9510876 Neumark Lack of data on worker productivity plagues numerous areas of empirical research related to issues of wage determination and productivity: life-cycle earnings, wage discrimination, returns to education, effects of marriage, job-specific human capital, industry rents, etc. For example, with data only on wages and worker characteristics over the life cycle, it is difficult to distinguish human capital models of wage growth from models of long-term, incentive compatible contracts. Typical wage regressions reveal positive effects of age on wages, conditional on a variety of covariates, but these positive effects neither prove nor disprove that mature workers are more productive than younger ones. This project will be the first to use U.S. data to estimate and compare plant- or firm-level estimates of wage and marginal productivity differentials. The productivity and wage estimates will be analyzed in the contexts of such commonly debated topics as race and sex discrimination in wages, the causes of rising wage profiles over the life cycle, and the returns to education and marriage. This project takes a production function approach to plants technologies, in which workers with different characteristics are treated as substitute labor inputs in the plant, but with potentially different marginal products. The modeling and estimation strategy permit a direct comparison of estimates of relative wages of workers with different characteristics with estimates of relative marginal productivities. he approach is applied to U.S. data using a match between long-form respondents to the 1990 Decennial Census, uho work in the manufacturing sector, and data on their employers from the Longitudinal Research Database. The employer-employee matched data set, the Worker-Establishment Characteristics Database (WECD), combines information with which to estimate production functions (such as value of output, cost of materials, capital, and employment), with information on earnings and demographic characteristics of the workers. This is a unique data set. Previously available U.S. plant-level or firm-level data sets only contain breakdowns of workers into production and non-production workers, and previously available worker-level data sets contain little information on the employers.